Algebraic K-Theory and Algebraic Groups

ABSTRACT Alexander Merkurjev University of California, Los Angeles 98 01646 This project involves algebraic K-theory of algebraic varieties and the theory of algebraic groups. Professor Merkurjev intends to compute the K-groups of algebraic varieties with large automorphism group. As an application of this certain K-cohomology groups, such as Chow groups, will be computed. The investigator will also develop a theory of cohomological invariants of algebraic varieties and compute the group of cohomological invariants with coefficients in a given module. A powerful method in the modern mathematics is to study an object by studying its symmetries. Mathematicians have developed rather sophisticated ways of measuring symmetry, and they use a mathematical object called a group to keep track of them. Very often the groups can be stacked into a tower of increasingly complicated symmetries. By looking at the tower, they can get a great deal of information about the basic object. Algebraic K-theory is a version of this method of grouping. Professor Merkurjev has new ideas about how to compute these towers for certain kinds of objects. He hopes to use these computations to study algebraic varieties and algebraic groups. These are the mathematical names for a collection of solutions to a set of equations and for particular collections of matrices. The results of this project will add to our understanding of many basic pieces of mathematics.